SGER: Comparative Analysis of Genetic Regulatory Networks

A Bayesian framework will be used to compare interspecies gene expression data in order to reconstruct gene regulatory networks for the species considered. Considering multiple species simultaneously should lead to more accurate, complete network models and facilitate the understanding of evolutionary relationships between components sharing common function across species. The knowledge of yeast networks will be used to generate hypotheses for networks that model human networks. Global gene expression data in response to DNA damaging agents will be compared as a first instance of the analysis tools. Impact: The ability to compare expression data across species will contribute to our understanding of systems biology and can also be applied to the comparison of different cell and tissue types as well as species. This may have applications in development and health sciences.